Planning Grant for an Electronic Center of Excellence in Net-Centered Enabling Information Technologies

A consortium of community colleges and universities in Ohio and Kentucky is using an ATE planning grant to formulate strategies for an ATE Center in Net-Centered Enabling Information Technologies (IT). The project institutions are: Lexington Community College; Jefferson Community College, Paducah Community College, and the College of Applied Science in Cincinnati. The project builds on previous projects in both Kentucky and Ohio. The idea is to "webify" IT using five Internet-centered areas: internet development; application development; networking; e-commerce; and data warehousing/mining. Graduates of these technical programs are able to design, develop, and effectively use various information technologies at net-centered businesses and industries.